Special Projects: Graduate Students in Computing Travel Support for Career Workshops

EIA-0101335
Aspray,William
Computing Research Association

Special Projects: Graduate Students in Computing Travel Support for Career Workshops

This award to the Computing Research Association (CRA) provides funds to support advanced graduate students to attend the CRA career workshops in 2001, 2002, and 2003. The workshops are held in Washington, DC and are open to all recent doctorates and advanced graduate students in computing disciplines. Topics incorporated in the workshops include development of effective teaching practices, research programs, and developing a successful academic career overall. Senior computer scientists and engineers conduct the workshops and program managers from NSF and DARPA discussing how their research funding programs are organized are also part of the workshops.